EXNET.IP - A High Performance Internet Network for Iowa State University Extension

9317714 Anderson This project extends IP networking to 107 cooperative extension offices throughout Iowa. The state is providing local area networks and computer equipment at the extension offices. This award covers the networking equipment, line installation and leasing, and technical and user support for the sites. The network uses the Novell extended LAN concept, which makes the entire state cooperative extension service network appear to the user as a LAN. The award provides partial support for three years. ***